Interrelation of Granitic Magmatism, Metamorphism and Deformation, within an Extensional Tectonic Setting, Kiqluaik Mountains, Seward Peninsula Alaska

Prior studies in the Kigluaik Mountains of the Seward Peninsula, Alaska have raised the possibility that Cretaceous granites were emplaced in a large-magnitude extension event, rather than during a compressional, crustal thickening event as previously thought. This project involves age dating and chemical and isotopic petrogenetic studies to test between the two different hypotheses. Results will assist other studies in the area by providing age control, and will give insight into processes leading to the production of granitic melts in several tectonic environments.